2001 Gordon Research Conference on Atmospheric Chemistry, Newport, Rhode Island

This award supports the Gordon Research Conference on Atmospheric Chemistry in Newport, RI on June 17-21, 2001. This Gordon Research Conference is one of the major meetings in this field. This year, the conference will cover a broad range of areas in atmospheric chemistry, including measurements of the troposphere from space, tropospheric aerosols, urban and regional chemistry, global tropospheric chemistry, snowpack and high-latitude boundary layer phenomena, Sun/Earth coupling in atmospheric chemistry, interactions between laboratory and theoretical studies of atmospheric reactions, and stratospheric chemistry and dynamics. The meeting will be attended by both established researchers and young scientists, among them the participants of the preceding Atmospheric Chemistry Colloquium for Emerging Senior Scientists (ACCESS).